Parallel Algorithms & Software for Nonlinear Problems in VLSI Circuit Simulation

The goal of this project is to design, analyze, implement and test several parallel methods for solving the nonlinear block bordered equations arising in VLSI circuit simulation on parallel computers. The focus will be on three important problem areas: 1) solving large block bordered systems of nonlinear equations for a VLSI circuit simulation, 2) VLSI circuit partitioning problem, efficiently mapping a circuit network to a parallel computer system; 3) load balancing problems on a distributed system, to balance the numerical computation load for circuit simulation among the processors in a parallel computer. The nonlinear block bordered equation is also one of the most common types of large scale systems of nonlinear equations in science and engineering applications. Effort will be devoted to develop parallel explicit, implicit, and iterative methods for solving the block bordered nonlinear systems of equations, including convergence analysis, perturbation methods for singular or nearly singular block bordered systems, applications of secant method, and the implementations of the methods on different types of parallel computers. Efficient partitioning methods will be investigated in order to speed up the convergence rate of the nonlinear block bordered systems of equations, and to balance the parallel load distribution statically. The dynamic load balancing is one of the most important issues for parallel computation. A load balancing scheduler will be developed on a parallel system to improve the computation efficiency for solving the block bordered equations in the circuit simulation. The design method is motivated by the use of parallel computers, and the implementation and testing will be on parallel computers. The aim is, however, to discover new methods that efficiently solve the numerical problems in VLSI circuit simulation on a parallel computer.